Applications of Luminescence Spectroscopy in Several StudentLaboratory Projects

9451409 Pastorek The new spectrofluorometric system will be used to demonstrate both applied and fundamental applications of luminescence spectrometry in undergraduate chemistry laboratory projects. This addition will make it possible for us to offer our students more diverse choices for open-ended special experiments dealing with the analysis of real samples. For example, they may chose to analyze environmental pollutants in natural waters, pigments in foods, and vitamins in blood, for analytes that are not well suited for absorption spectrometry. Students from applied chemistry areas, such as, food science, pharmacy, and agriculture taking Instrumental Analysis stand to gain a new regularly scheduled experiment that would capture the flavor of a real sample analysis. Chemistry majors in the "Integrated Laboratory" course will have the opportunity to use a modern spectrometer fitted with a low temperature cell for the study of the excitation, phosphorescence emission, and lifetime for a variety of substituted benzophenones they have individually synthesized in the laboratory.